Peep and The Big Wide World `Anywhere Math` Initiative, Season 4

Proposal Number: DRL 07-41644
Institution: WGBH Educational Foundation
PI: Kate Taylor
Title of Project: Peep and the Big Wide World "Anywhere Math" Season 4

WGBH Educational Foundation will produce and distribute 10 new episodes of the award-winning TV series PEEP and the Big Wide World, launching a new initiative "Anywhere Math". In addition, funds will help launch an expanded PEEP Web site, and develop and evaluate an outreach plan targeted to Native American preschoolers. PEEP's three intended impacts are to (1) engage preschoolers in science explorations that promote positive attitudes and inquiry skills, (2) empower parents to encourage and support their children's science activities and promote the ideas of "science play", and (3) provide educational resources and professional development for preschool educators via a curriculum that contributes to the emerging field of preschool science and math education. Project partners include Head Start, Science Olympiad, Countdown to Kindergarten, and the Boston Children's Museum. The series is produced by WGBH and broadcast on TLC and Discovery Kids. This upcoming season the show will also be broadcast on public television via APT. Goodman Research Group will conduct formative and summative evaluations to assess project impact.